SustainIT 2013 Student Travel Support Request

This project will support students to attend SustainIT conference to be held in Palermo, Italy on Oct 30-31, 2013. The SustainIT conference focuses on applications of information and communication technologies (ICT) for Sustainability. SustainIT 2013 will include Ph.D. forum, work in progress session, poster session, industry track and keynotes. Extended versions of selected papers will be published. The conference will provide an opportunity for students to interact with researchers, particularly computer scientists, working on applications of ICT for sustainability. The students will be selected based on applications that explain how they will benefit from the conference. Preference will be given to minority students and students with accepted papers in SustainIT.